High Performance Liquid Chromatography in the Chemistry Curriculum

High performance liquid chromatography (HPLC) will be introduced as an analytical tool in the chemistry/biochemistry curriculum. The instrument request includes a ternary pumping system, data station, and a photo diode array detector. The HPLC will be used to improve the Honors, Organic, Analytical, and Biochemistry classes, as well as student research and student projects. Automated, hyphenated, chromatographic- spectral instruments, such as the HPLC involved in this project, provide a cost effective way to introduce students to modern analysis. The special features of this project include development of new laboratory procedures for instructional use, impact spanning many uses in courses and undergraduate research, and involvement of a large proportion of women in the project.